Creating a Model for Sustainable Ambitious Mathematics Programs in High-Need Settings: a Researcher-Practitioner Collaboration

A long-standing challenge in secondary mathematics education is broadening participation in STEM. Reform of schools and districts to support this goal can be challenging to sustain. This implementation and improvement project will study a successful, ambitious mathematics reform effort in high-needs secondary schools. The goal is to develop resources and tools to support other high-needs schools and districts in transforming and sustaining their mathematics programs. The model focuses on the resources required for change and the aspects of the organization that support or constrain change in mathematics teaching and learning. The project team includes school district partners that have successfully transformed mathematics teaching to better support students’ learning.

The project will develop a model for understanding the demands and resources from an organizational perspective that support ambitious mathematics teaching and learning reforms. Demands are requirements for physical resources or efforts that need to be met in the instructional system. Resources are the material, human, instructional, and organizational requirements needed to address demands. The project will develop the model through a collaboration of researchers, professional development leaders, students, teachers, coaches, and administrators to: (1) understand the demands created throughout a school or district when implementing an ambitious secondary mathematics program in a high-need context; (2) identify the resources and organizational dynamics necessary to address the demands and thus sustain the program; and (3) articulate a model for a sustainable ambitious secondary mathematics program in high-need settings that has validity across a range of implementation contexts. To develop the model over multiple iterations, the project will examine the demands and resources related to implementing an ambitious mathematics program, the perspectives of stakeholders, the organizational structure, and the program goals and implementation. The project will also conduct a systematic literature review to bring together findings from the successful district and other research findings. The data collection and analysis process will include interviews, document analysis, collection of artifacts, and observations across four phases of the project. Participants will include students, teachers, instructional support personnel, and administrators (from schools and the district).

The Discovery Research preK-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics by preK-12 students and teachers, through the research and development of new innovations and approaches. Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for the projects.